U.S.-Japan Cooperative Research: Synchrotron Radiation Methods for Structural Studies of Materials

This award will enable a group of researchers headed by Professor Keith Hodgson of Stanford University to collaborate with researchers under the direction of Dr. Jun-ichi Chikawa at the National Laboratory for High Energy Physics in Tsukuba, Japan over a two-year period. Investigators will take advantage of recent advances in the production of synchrotron radiation, coupled with advances in x-ray detectors, to carry out new experiments on the structure of materials. X-ray detector systems, developed by Japanese researchers for x-ray diffraction and scattering applications, will be coupled with a very high brilliance source of photons developed at Stanford laboratories to study thin films, time-resolved changes in structure, and the structure of biological molecules. This program of structural studies of materials will continue many years of scientific and technical exchange between the U.S. and Japanese laboratories in areas of monochromator and instrument design, wiggler and undulator insertion device development, and machine operation and improvements.